Hawaiian Values, Science and Technology: Advancing a New Paradigm for STEM Education

Title: Hawaiian Values, Science and Technology: Advancing a New
Paradigm for STEM Education

University of Hawaii at Hilo

HRD 02-23040

PI - Rose Tseng

University of Hawaii - Hilo (UHH) will significantly increase enrollment and graduation rates of Native Hawaiian students in mathematics and science disciplines and increase their familiarity with and the use of related technology. Elements of the project will take advantage of the extraordinary natural and cultural environment in which the University is situated.

UHH will implement a new model for STEM education that is predicated on the integration of assets of culture and natural environment, and which recognizes the importance of early (K- 12 years) and positive exposure if increasing percentages of students are to be attracted to STEM disciplines. The model, called Hawaiian Compass for Advancement in Science and Technology,
involves the advancement of faculty development which enculturates Hawaiian values, ways of knowing and learning, and use of current technology, curricula enhancement (technological and pedagogical) in STEM disciplines, faculty research, and outreach to Hawaiian students and communities through special enrichment classes and informational programs.